Mathematical Sciences: Enhancement of Scientific Computing Equipment: Department of Mathematics, Tulane University

The Department of Mathematics at Tulane University will purchase workstations which will be dedicated to support research in the mathematical sciences. The equipment will be used for several research projects, including in particular: Research in Computational Biofluiddynamics Research in the Adaptive Solution of Systems of Parabolic Partial Differential Equations Research in Numerical Fluid Dynamics and Combustion